Control of Robotic Manipulators Using a Neural Network Based Learning Controller

The overall objective of this project is to develop a learning controller for robot manipulators, using neural network techniques. This approach has the advantages of being highly portable, numerically efficient, and applicable to nonrepetitive operations. Current research goals are to further investigate the properties of a learning controller (which was previously developed at the University of New Hampshire) through real time experiments using a five-axis industrial manipulator, to extend the theoretical analysis of such learning systems, and to develop design methodologies for applying the learning technique to other complex control problems.